RIA: Concurrent Creep and Densification of Porous Ceramics

9409456 Nettleship This Research Initiation Proposal is to support an experimental study of concurrent creep and densification of ceramic materials. Two existing theoretical models will be evaluated by a systematic experimental study and comparison made by data obtained during pressureless sintering and a sinter-forging operation. Compacts of alumina powder will be prepared by colloidal methods and sintered in a specially designed constant load creep apparatus. Finally, the sensitivity of the adapted models to processing variables such as particle size and shape will be examined. ***